U.S./Europe Internet Connection

The overall goal of this project is to foster current and future academic and research network communications between the U.S. and Europe. In this regard, support will continue for the existing 56 kbps data communications link connecting the U.S. research and academic networks (NSFNET, NASA, Science Internet, Energy Sciences Network, etc.,) to networks used by scientic communities in France and, in the near future, Switzerland. This will enable continuation of service, based on TCP/IP in France and Switzerland, to scientists in these countries wishing to communicate for purposes of scientific collaboration or to access unique computer-based resources. The world-class SIMBAD astronomical data base, maintained by the Strasbourg (France) Stellar Data Center on a computer near Paris, is an example of a unique resource of great importance to U.S. and for support personnel at Princeton University. The French National Research Institute for Informatics and Automatics (INRIA) participates by paying the French share of the circuit costs and by maintaining the communications gateway at their Sophia-Antipolis campus.***//